Cohomology of Arithmetic Groups and Galois Representations

The Principal Investigator (PI), with various collaborators, studies an
area of number theory concerned with representations of Galois groups over
the rationals and cohomology of finite-index subgroups of GL(n,Z). The
link between these is given by the action of Hecke operators on the
cohomology and the image of Frobenius elements in the Galois
representation. The PI explores the "ADPS" conjecture, where the
cohomology and Galois representation are both mod-p valued. He outlines
an approach for proving this conjecture in certain 3-dimensional cases,
testing it in certain 4-dimensional cases, and independently verifying
some of its consequences for Diophantine problems. The PI states a new
conjecture that links the mod-p objects with automorphic representations
and suggests an approach for proving this conjecture in the 3-dimensional
case. Finally, the PI and a colleague continue their study of p-adic
families of automorphic cohomology. On the one hand, for certain classes,
e.g those on GL(3) not lifted from GL(2), they consider questions of
p-adic rigidity. On the other hand, for deformable classes, they
investigate 2-variable p-adic L-functions.

The ability to solve systems of algebraic equations has been central to
modern science and engineering. It has also always been one of the main
topics in mathematics, driven both by these applications and by its
intrinsic aesthetic appeal. When the equations have whole-number
coefficients, their study becomes part of number theory. The theory of
prime numbers (numbers without smaller divisors except 1, such as 2,3,5
and 7) is central here. In the last 50 years, applications of these
theories have become crucial to cryptography and communications theory.
The Principal Investigator studies delicate questions concerning the fine
structure of sets of solutions to systems of polynomial equations, the
symmetries they exhibit, and their (often surprising) relationship to
various interesting geometric and topological objects. These
relationships are mediated by how the equations behave with respect to the
various prime numbers. There are a number of conjectural explanations of
these relationships, and the PI studies them, proving them in certain
"easy" cases and verifying them by computer in more complicated cases. He
also investigates phenomena which compare whole families of these
structures with respect to a fixed prime number.